Experimental Studies of Thin Film Magnetism

Experimental investigations of electronic and magnetic properties of thin film structures, surfaces, and interfaces. Approach combines novel materials synthesis, advanced structure determination methods, and spin-sensitive spectroscopic techniques. Molecular beam epitaxy, low-energy electron diffraction, scanning tunneling microscopy, magneto-optical techniques, and spin-polarized electron spectroscopies are employed. The principal scientific objectives are to explore the relationship between atomic level structure and magnetism, and to probe fundamental concepts regarding phase transitions.